Evolutionary Effects of Irradiation in Low-Mass Binaries

Frank, Juhan AST-9720771 Dr. Frank will investigate the effects irradiation from an accretion disk has on the evolution in semi-detached binary systems containing compact objects, such as white dwarfs, neutron stars or black holes. Irradiation, combined with systematic angular momentum losses, drives limit cycles in the evolution of the system, which Dr. Frank will investigate by numerical simulations under a variety of assumptions. His main goals include determining if the observed dispersion in mass transfer rates and the relative distribution of cataclysmic variable subtypes can be explained by the irradiation-driven cycles, and then extending this work to the cases of systems involving neutron stars and black holes.